CISE Research Infrastructure: The Digital Commonspace

EIA-0080146
Nutt, Gary
University of Colorado - Boulder

CISE Reserach Infrastructure: The Digital CommonSpace

This research program addresses symbiotic computing environments in which people use small, communicating computers (SCCs) to collect and use information and tools in their personal information space. This information space, which we call a Digital CommonSpace, is managed by a broad spectrum of computing and network equipment: SCCs, laptops, personal computers and workstations, and servers all interconnected by a spectrum of networks. This research addresses devices, systems, and networks; dynamic interconnection facilities; and general applications. There is an emerging computing model for symbiotic computing environments in which traditional computer science domains have become blurred: The OS must be tailored to meet the needs of application support tools and the applications themselves. The application support software must exploit the OS design and while providing custom support to the applications. Applications must use new software paradigms to take advantage of the application support tools and OS. The individuals for this research program have conducted research in each of these traditional domains, and they are now focusing on the Digital CommonSpace as the mechanism to advance the state-of-the-art symbiotic computing.